Ocean-Ice Sheet Interactions in the North Atlantic Prior to ~130,000 Years Ago

9509997 Bond Fast paced cycles of two to three thousand years recorded in the North Atlantic cores show apparently synchronous discharge of icebergs from at least two sources on Iceland and the Gulf of St. Lawrence and may be related to mechanisms originating in the ocean/atmosphere system. Each cycle also correlates with cold pulses in Greenland ice cores and linked to Heinrich events. The PI's research will further investigate the role of ice sheets in forcing rapid climate shifts. If the 2 to 3 thousand-years cycles persist through different glacial/interglacial periods then they would imply that the oscillations operate independently of large glaciers and originate in the atmosphere/ocean system. ***